WOCE Sections P17N, P6E, P21E in the Eastern Pacific Ocean: CFC Measurements

In this project, the PI will collaborate, in 1992, with PI's from two other institutions to measure Chlorofluorocarbons (CFC's), F-11 and F-12, from water samples collected on three separate legs of a hydrographic cruise along 32|S in the Pacific from Chile to Australia as part of the World Ocean Circulation Experiment (WOCE) Hydrographic Program (WHP) (referred to as WOCE line P-6). This particular project will focus specifically on the eastern portion between Chile and Easter Island. In 1993 and 1994, similar measurements will be made on a zonal WOCE line along 17|S (P-21), and a meridional line in the eastern basin of the North Pacific (WOCE line P-17N). Data will be used to examine modification by mixing and circulation of all CFC-bearing waters in the eastern Pacific Ocean.